Collaborative Research: SaTC 2.0: RES: TRUSST-O-RAN: Trustworthy, Resilient, Unified, and Scalable Security Techniques for Open Radio Access Network

The open radio access network (O-RAN) is becoming the global standard for open, programmable, and disaggregated 5G and 6G networks, where components from multiple vendors reduce deployment cost and accelerate innovation. These architectural innovations introduce new security risks associated with timing gaps, control decisions, and interactions among distributed network components without necessarily breaking encryption. This project contributes scientific advances that directly impact the secure evolution of next-generation wireless networks. The project’s novelties are new methods for finding, explaining, and mitigating timing and control attacks by developing a security framework for threat modeling, runtime monitoring, artificial intelligence (AI) enhanced security control, and experimental validation. The project’s broader significance and importance are to advance the science of open cellular networks, strengthen the national cybersecurity posture of disaggregated wireless network operations, and provide a foundation for trustworthy and resilient commercial and mission-critical networks of the future.

This research characterizes attacks caused by unsynchronized state transitions, timing-induced protocol deviations, adversarial user equipment behavior, and unstable application-level control decisions. The project team consequently introduces AI control loops for protocol and timing behavior monitoring, anomaly detection, and mitigation. This is achieved through temporal invariant models that specify expected behavior across distributed network components, interface-aware trace analysis methods that expose cross-interface attack patterns, anomaly graphs that connect events across the radio, control, data, and synchronization planes, and adaptive mitigation policies that respond to the detected threats. The work is evaluated using software-defined radios, commercial O-RAN equipment, and national wireless testbeds. The outcomes include datasets, adversarial traces, open-source software and training material for reproducible security testing, runtime anomaly detection, and mitigation to accelerate adoption across academia, industry, and government.